Design of a Large Capacity Object Server Supporting Earth System Science Researchers

This research is to design I/O subsystems for high capacity storage and associated object management systems tailored for the kinds of data types encountered in scientific research on global climate change related to the physical interaction of the ocean, land and atmosphere. The researchers are constructing a prototype system, populating it with real data and making it available to earth system science researchers on the National Research and Education Network (NREN). The prototype object management system is based on significant extensions of the dual technologies of extensible database systems (POSTGRES) and redundant arrays of inexpensive disks (RAID), developed in part under previous NSF support. This research relates to Digital Equipment Corporations (DEC) project Sequoia 2000. DEC has provided the researchers funded under this grant with the equipment necessary to perform the research.